CNS Special Projects: Scholarship and Travel Grants for the Grace Hopper Celebration of Women in Computing 2006

The Anita Borg Institute for Women and Technology (ABIWT) has received a Special Projects award to allow approximately eighty undergraduate and graduate students to attend the 2006 Grace Hopper Celebration of Women in Computing. The fifth Grace Hopper Celebration will be held on October 3-7, 2006 in San Diego. This international conference will feature keynote talks by some of the most successful women in the computing field, technical presentations by a wide range of conference participants, as well as panels, workshops, birds-of-a-feather sessions, and technology innovation forums for an in-depth look at new computing issues.